A new method for global analysis of manifolds asymptotic to partially hyperbolic tori in near-integrable Hamiltonian systems

Abstract

Award: DMS-0072153
Principal Investigator: Michael Rudnev

Global dynamics in near-integrable Hamiltonian systems with
several degrees of freedom will be studied. The research aims to
progress towards proving the conjecture about the existence of a
generic topological instability in such systems, known as
"Arnold's diffusion", effected via resonances. The first goal is
to obtain an adequate local description of various geometric
objects that the perturbation causes to appear. These objects can
be characterized by their rotation vectors. First, they are
lower-dimensional partially hyperbolic (whiskered) tori and the
Lagrangian manifolds (whiskers) asymptotic to these tori.
Generally, the collection of all the rotation vectors yielding
whiskered tori form a set of the first category. Rotation numbers
in the "gaps" in it describe so-called "Aubry-Mather sets". Yet
the latter term is somewhat obscure beyond the case of two
degrees of freedom. Incorporating many of the above mentioned
objects of all types into a single global geometric framework
effected as an atlas over the phase space, is the second, and the
main goal. Apropos of "Aubry-Mather sets", this will require
mutual interpretation of the results obtained via variational
methods of Lagrangian mechanics and geometric implicit function
theorems, such as KAM, of Hamiltonian approach.

The proposed research focuses on instability as a generic feature
of complex mechanical systems, be it the Solar system, or a
polyatomic molecule. In order to describe such, one needs to know
the present state of the system, and the equations of its future
evolution. Typically, due to their complexity, one cannot obtain
the solutions of these equations with the initial conditions
incorporated. Otherwise, and this is an exceptional case, the
system is called integrable. Such would be the Solar system if
one considers only the interaction of each individual planet with
the Sun, disregarding in particular the mutual gravitational
attraction between the planets, etc. Yet the laws of motion are
known exactly, the initial state of a system has to be measured,
which leads to errors, however small. The hypothesis of
instability, alias "Arnold's diffusion," suggests that two
infinitesimally different initial conditions may result in two
qualitatively different scenarios ad infinitum. In particular,
this is believed to be true for small perturbations of integrable
systems, e.g. if one takes into account the influence of the Moon
or Jupiter on the orbital motion of the Earth. The suitable
mathematical enviroment to model the systems in question is
provided by geometrical mechanics. The technological motivation
for this research comes from molecular chemistry and biology
where billions of years it would take the instability to develop
itself on a cosmic scale, translate into fractions of a second.